Flow Effects on Osteoblasts and Bone Formation

The purpose of this research is to determine the response of osteoblasts to flow and to ascertain what is the transducing physical signal and what is the biological signal transduction pathway for the signal. Skeletal unloading, as a result of bad rest and weightlessness, has been shown to cause progressive bone loss. However, the mechanisms responsible for this phenomenon are largely unknown. Mechanical loading induces strains which cause pressure gradients in the interstitial fluid and hence fluid flow. The goal of this research is to prove mechanical loading stimulates the osteoblasts.